Coastal Ocean Processes (CoOP) Planning and Management

The planning of Coastal Ocean Processes (CoOP) will continue toward community development of a national plan for fully interdisciplinary research in the coastal ocean during the next decade.